Understanding and Improving Protective Decision Making

Seismologists have predicted that a severe earthquake in the
Istanbul region is highly likely in the next 30 years. This
forecast has drawn much attention in the media and raises
challenges as to how potential losses may be reduced by
protective measures. Decisions made by private individuals,
by officials, and by engineers and builders are all relevant
to this question. The principles underlying protective decision
making need to be better understood, for the sake of this and
many other applications.

We investigate how people determine whether to purchase insurance
and/or invest in loss-reduction measures against risks from fire, theft,
accidents or natural disasters. We examine the effects of different
ways in which risks can be communicated and different frames in which
information and choices can be presented; we also examine how
protective decisions are affected by instructional modules that aid
understanding of probability and that suggest useful general strategies
for framing decisions. To estimate these effects, controlled laboratory
experiments, field surveys and interviews will be conducted both in
the United States and in Turkey.